Automatic Regulation by Central Multitransmitter PeptidergicNeurons

Cardiovascular disorders are the leading medical cause of disability and deaths in the United States. For example, systemic arterial hypertension afflicts approximately 20% of the adult population, and is the prime cause of congestive heart failure, stroke, and renal disease. It is known that the lower brain stem, particularly its medulla oblongata portion, plays a primary role in the central governance of vital visceral functions. Hence, Dr. Hirsch will concentrate his research efforts on neurons within this important brain region. Using innovative chemical neuroanatomical and physiological methodologies, he will determine which population of medullary cells synthesize and co-localize the neurotransmitters thyrotropin-releasing hormone (TRH) and serotonin (5-HT). In addition, Dr. Hirsch will determine how these chemical messengers differentially regulate peripheral arterial blood pressure, heart rate, and glandular release of adrenaline-related hormones. The long-term goals of his multidisciplinary program is to provide the basis research necessary for the development of novel medicinal pharmaceutical agents to ameliorate these crippling and life-threatening human illnesses.